Dynamic Response of Masonry Building Systems

Masonry construction comprises a large portion of building construction in the U.S. and the world. Reinforced masonry construction use is increasing in moderate to higher seismic zones because of its apparent features of economy, fire safety, architectural flexibility and ease of construction. The present state of masonry structural analysis and design, and materials and construction technologies does not enable an accurate prediction of building behavior under lateral loads such as seismic loads. In the U.S., masonry buildings are designed and built with methods, codes and standards that rely upon a mixture of working stress methods, empirical rules, and questionable methods for determining allowable stress values. Masonry is also a complex building material because of the large number of design and construction variables which influence the final product configuration and its response under seismic loads. In order to describe the seismic response of masonry buildings it is necessary to develop the fundamental knowledge base to determine basic design methodologies consistent with safety and economic requirements. This research project is concerned with modeling reinforced masonry to predict its behavior under seismic forces. In particular the modeling methods which are studied are the lumped parameter methods and the finite element method. The models are validated by using research data from experiments conducted by other researchers on components and systems of masonry construction. This project is part of the U.S.-Japan Coordinating Program for Masonry Building Research and the Technical Coordinating Committee for Masonry Research (TCCMAR) Program.